NER: Computer Aided Design of Silicon-based Quantum Computers

Mark Oskin
University of Washington
0210373

Quantum computers seem the subject of science fiction, but their tremendous
computational potential is closer than we may think. Despite significant
practical difficulties, small quantum devices of 5 to 7 bits have been built
in the laboratory. Silicon technologies promise even greater scalability.
To use these technologies effectively, and help guide quantum device
research, computer architects need to start designing and reasoning about
quantum processors now. However, two major hurdles stand in the way.
First, compactly describable rules that characterize silicon-based quantum
computing technologies are not known. Second, there does not exist an
infrastructure to design, test, and evaluate architectural alternatives.

This grant addresses both of these
items. First, we will formalize the design rules of a widely discussed
and likely quantum device technology. Second, we have already begun to
develop architectural abstractions for this technology that can be composed
together to form general-purpose quantum information processors. Third,
using these abstractions we will develop an automated computer aided
design tool that takes a description of a quantum computing architecture and
compiles it to a device library of quantum cells. Finally, we will
develop a simulator that quickly estimates the cost-performance of quantum
systems.

These research goals, once accomplished, will serve as foundational
resources for the development of quantum computer architectures. In
addition, by reasoning about architectures we can begin to find the limits
of current quantum device proposals. These limits can be turned into
research goals, items that further quantum device research needs to
overcome.